IUCRC Planning Grant for UW to Affiliate with CHOP/CCHiPS

A planning meeting will be held to determine if the University of Washington is to become a research site to the existing Industry/University Cooperative Research Center for Child Injury Research and Prevention (CChIPS). The Center is dedicated to all aspects of childhood injury prevention. The addition of the University of Washington will build on its current research capabilities in the areas of; 1) childhood injury biomechanics, mechanisms and tolerance; 2) product design; 3) human interaction with and behavior related to safety technology; 4) safety education and promotion; and 5) focused injury prevention behavioral research/modification programs.

The addition of the University of Washington will have a broad impact on the participating students and faculty through involvement with the industrial members. All will significantly benefit from the greater interaction possible in a multi-university center.